Collaborative Research: GEM: Revealing and Quantifying Hidden Low Frequency Plasma Waves in Magnetospheric Dynamics

Earth’s magnetic field traps high-energy particles in regions known as the radiation belts, which can pose hazards to robotic and crewed spacecraft. Changes in the solar wind can cause these particle populations, and therefore the associated hazards, to increase or decrease over periods ranging from hours to days. The goal of this project is to measure one type of electromagnetic plasma wave that plays a crucial role in energetic particle loss. Specifically, the project will implement an improved method of measuring wave properties. This will enable a significantly larger fraction of the waves to be observed compared to previous work, filling a known measurement gap. Results will help improve the accuracy of simulations that predict the behavior of high energy particles near Earth and the hazard that they represent to human space assets.

The goal of the proposed work is to quantify how the importance of low frequency (LF) whistler-mode hiss waves to Earth's inner magnetospheric dynamics changes when instrumental noise limitations on the measurement of these waves are circumvented. LF hiss wave properties, specifically wave amplitude and frequency distributions, are critical for determining the ability of LF hiss to influence electron dynamics in the inner magnetosphere. Wave frequencies impact the energies and pitch angles of electrons that efficiently interact with LF hiss waves, while wave amplitude determines the strength of this interaction. Due to a noise limitation inherent in the sensors commonly used to detect LF hiss waves, prior analysis of hiss wave data resulted in incomplete distributions of wave frequency and amplitude. This study employs a new methodology that circumvents the instrumental noise limitation, allowing novel observations of the full range of naturally occurring LF hiss wave properties. The wave database created through this study will be used to reassess LF hiss occurrence, spatial distribution, and wave properties. Newly quantified LF hiss wave properties will be disseminated to researchers developing Earth radiation belt models, resolving identified wave observation gaps and enabling new advances in simulation accuracy.